Twenty Fifth Southeastern-Atlantic Regional Conference on Differential Equations (SEARCDE-25)

University of Dayton, Dayton, Ohio, October 7th-8th, 2005.

The award is to support of up to 35 new researchers to attend the twenty-fifth Southeastern Atlantic Regional Conference on Differential Equations, to be held at the University of Dayton in October 2005.

This is a two-day conference with four invited plenary speakers and features many lectures by recent Ph.D.s on their research. It has become an important meeting for researchers in the region to meet and discuss recent developments in differential equations.